Sterically Hindered Ligands and Studies of Their Biomimetic Metal Complexes

This research will focus on the synthesis of hindered bidentate ligands designed to enforce unusual coordination numbers and/or geometries around a metal (copper). The work seeks to provide better models for understanding the chemical and spectroscopic properties of metalloproteins such as azurin. %%% With this RUI award, the Synthetic Organic Program is supporting the research of Dr. Patricia S. Traylor of the Department of Chemistry at the University of San Diego. The focus of the research will be to use hindered ligands to help understand the extraordinary spectra and properties of important classes of metalloenzymes and to involve undergraduates in a meaningful research experience.